Collaborative Research: vObjects - Understanding their Utility to Enhance Learning of Abstract and Complex Engineering Concepts

Thermodynamics is a subject that often features engineering problems that are not well-defined and abstract concepts that are often hard for students to understand. In addition, the scale at which thermodynamic phenomena occur makes it difficult, if not impossible, for students to interact with authentic physical objects that exhibit such phenomena. To address these challenges, this project will use virtual objects (vObjects) to enhance learning by closely mapping the learner experience to real-life engineering scenarios. This study will be one of the first to systematically evaluate characteristics and features of a virtual learning environment designed to support the "messiness" of real world problem solving.

This project will employ technological advancements for manipulation of vObjects to help students apply foundational knowledge to the solution of ill-defined problems and to address the improvement of virtual learning for future engineering curricula. A comprehensive understanding of the utility of vObjects in engineering will contribute to the development of online learning environments, including augmented reality environments. Virtual learning of engineering skills can also be used as a tool for broadening participation in STEM by providing the opportunity for greater access by diverse students. In broad terms, this research will contribute to improving and transforming undergraduate engineering education by enhancing student learning of theoretical and abstract engineering concepts.